A Proposal to Upgrade Computer Facilities for the Science Curriculum at the UWC-Richland

The computer science program is expanding and integrating microcomputer technology into the science curriculum, including computer science, mathematics, engineering, business/economics and psychology. The microcomputers are enabling the programs to introduce science students to modern computational facilities and practices.